Group Travel: XIX International Congress of Entomology; to be held in Beijing, China, June 28-July 4, 1992

A block travel grant will provide support for 32 U.S. scientists to attend the International Congress of Entomology in Beijing in summer of 1992. It has been difficult for scientists from Asia and particularly China to attend international meetings and this Congress represents important opportunities for communication and scientific exchange. The quadrennial schedule of Entomology Congresses means that they are milestone events in summarizing the past and formulating the future course of insect sciences. The program for the congress consists of symposia, workshops, contributed papers and other activities in 17 sections representing the entire range of entomology and associate sciences. Broad participation by U.S. scientists is desirable; unfortunately, costs of travel and other expenses will be substantial, if not prohibitive, particularly for students and junior-level scientists. Application forms for travel grants will be widely distributed and all U.S. scientists will be eligible. A committee has been formed to review applications and make wards. Half of the awards will be made to students and preference will be given to junior scientists. Applications will be ranked based on proposed contributions to the Congress and the degree to which attendance will further the work of the applicant or others.